Construction of a Decoder for an Algebraic Geometry Code

9403420 O'Sullivan "Construction of a Decoder for an Algebraic Geometry Code" This project is funded under the National Science Foundation's (NSF) Small Business Innovation Research (SBIR) program, which is designed to provide an opportunity for small business, particularly the small high technology firm, to participate in NSF research. Phase I of the SBIR program serves as a filter to select promising proposals and determine if the firm can do high quality research. Phase II is the principal research project. Phase III is the conversion of the NSF-funded research into commercial applications and technological innovation supported by follow-on private venture capital or other non-federal financing. The objective of this Phase II program is to continue the development of a decoder for Hermitian codes, begun in Phase I, by completing additional refinements to the mathematics of the decoding algorithm and to the C-language decoder simulation, and by designing the architecture and detailed logic of a demonstration VSLI codec implementation for a specific four bit code. ***